Continuing Research Using the NOAA/CU Tropical Pacific Profiler Network

The objective of this research is the investigation of the field of motion in the tropical Pacific using four existing VHF (50 MHz) radars located in Peru, Christmas Island, Phonpei, and Biak, Indonesia. Topics for investigation include measured vertical motion, the vertical flux of horizontal momentum between the boundary layer and roughly 20 km. These measurements will be used in cognate studies of gravity waves, thermal convection and tidal oscillations. This research is a joint activity between the University of Colorado and NOAA's Aeronomy Laboratory.